Growth and Properties of III-VI Based Heterostructures

9801302 Olmstead This project focuses on the heteroepitaxial growth of III-VI based semiconductors and on interrelated structural and optical properties. The III-VI materials comprise two principal classes: layered materials, such as GaSe and InSe, and cubic materials such as Ga2Se3 and In2Se3, which are being investigated as prototype systems for heteroepitaxy of dissimilar materials and as possible novel materials for electronic or optoelectronic devices. Both classes of III-VI materials have bandgaps in the optical range and chemical compatibility with more traditional electronic materials. The structure of III-VI semiconductors gives them highly anisotropic transport, mechanical and optical properties and large non-linear susceptibilities. Specific goals are: to determine growth mechanisms for GaSe, Ga2Se3 and related materials by molecular beam epitaxy (MBE); to determine the role of substrate interactions and surface bond character in controlling the nucleation and growth of GaxSey compounds; to establish an experimental and theoretical framework for determining the appropriate growth conditions to obtain optimal structural, electronic and optical properties in III-VI materials; to evaluate the feasibility of using these materials for novel opto-electronic applications through analysis of fundamental structural, electronic and optical properties. The approach is to concentrate on the nucleation and growth of GaSe and Ga2Se3 on Si, GaAs, CaF2 and A1203, and on the properties of the resultant thin films. A combination of in situ and ex situ experimental probes including photoelectron spectroscopy and diffraction, electron diffraction, optical spectroscopy, atomic force microscopy, and high resolution transmission electron microscopy in combination with kinetic modeling of the growth process will be employed. The role of ionicity in the substrate, the degree of surface passivation, and the inherent lattice mismatch with the overlayer will be varied among t he four materials. %%% The project addresses basic research issues in a topical area of materials science having high potential technological relevance. The research will contribute basic materials science knowledge at a fundamental level to new aspects of electronic/photonic devices. Experimental tools are now available to allow atomic level observation of elementary surface processes which when better understood allow advances in fundamental science and technology. The basic knowledge and understanding gained from the research is expected to contribute to improving the performance and stability of advanced devices and circuits by providing a fundamental understanding and a basis for designing and producing improved materials, and materials combinations. An important feature of the program is the integration of research and education through the training of students in a fundamentally and technologically significant area. ***